Collaborative Research: Bayesian ANOVA for Microarrays

DNA microarrays can provide insight into genetic changes occurring
during stagewise progression of diseases like cancer. Accurate
identification of these changes has significant therapeutic and
diagnostic implications. Statistical analysis of such data is however
challenging due to the sheer volume of information. With new
microarray technology it is possible to measure expressions on nearly
60,000 transcripts for each sample of tissue analyzed. To properly
understand the evolution of a progressive disease, expression values
are collected over all possible biological stages, thus the number of
parameters in such problems can be in the hundreds of thousands, or
even millions. The high dimensionality presents theoretical problems
to standard ANOVA-based extensions of two-sample Z-tests, a popular
method for detecting differentially expressed genes in two groups.
Additionally, standard approaches that focus on controlling false
detection rates primarily apply to simpler experimental designs;
moreover these approaches tend to be conservative and are expected to
be worse in multigroup settings. This work introduces a new
methodology called Bayesian ANOVA for Microarrays (BAM) for reliably
detecting differentially expressed genes in complex experimental
settings. The method rests on a high dimensional variable selection
method that exploits a rescaled spike and slab hierarchical model.
BAM is shown to be risk optimal in terms of the total number of
misclassified genes. The exact mechanisms for this risk optimality
are theoretically delineated as a selective shrinkage effect. Theory
guides development of graphical devices for adaptive optimal gene
selection. A large multistage colon cancer microarray repository
collected at the Ireland Cancer Center of Case Western Reserve
University serves as a testbed for the methods. In parallel to this
is the development of JAVA-based software for implementing BAM.
Software uses a menu driven GUI and includes a minimal number of
user-specified tuning parameters, thus making it user friendly for use
by other molecular biology laboratories.

DNA microarrays allow for high throughput analysis of potential
genetic determinants of diseases like cancer. It is now typical to
have expression on nearly 60,000 transcripts for each sample of tissue
analyzed. This information can potentially provide information about
which genes are involved in stagewise development of cancer as well as
indicate novel therapeutic and diagnostic targets. However,
statistical inferences to identify interesting genes is challenging
due to the large number of statistical tests that are run. Standard
approaches employ ANOVA test statistics and are prone to high false
detections. False detection rate control methods tend to be overly
conservative and do not extend naturally to more complex multistage
experimental designs. This work introduces a new methodology called
Bayesian ANOVA for Microarrays (BAM) which reliably detects
differentially expressed genes in multigroup experimental design
settings. The method employs a special hierarchical model that
imparts an oracle like behaviour for gene selection --- that is,
ultimately, only those truly differentially expressing genes are
selected. The reasons for this behaviour are theoretically delineated
in this research, and the theory guides the development of novel
graphical devices for adaptively optimal gene selection in real
microarray datasets. A large multistage colon cancer microarray
repository collected at the Ireland Cancer Center of Case Western
Reserve University serves as a testbed for the methods and also
provides a tremendous opportunity to understand the colon cancer
disease process, a topic which is of great medical importance. While
colon cancer has a well defined evolution defined by clinical stage,
very little is known about its molecular evolution. In parallel to
this, is the development of JAVA-based software using a menu driven
GUI having a minimal number of user-specified tuning parameters, thus
making it feasible to port the software to molecular biology
laboratories for active use in analysis of other disease processes and
potentially other high throughput sources of data.